Contact Geometry, Complex Analysis and Imaging

Abstract for "Contact geometry, complex analysis and imaging"
DMS- 0203705

Dr. Epstein's research proposal contains projects in four distinct areas: (1)
Invariants of contact structures, (2) Problems in CR-geometry, (3)
Multi-parameter perturbation theory, (4) Magnetic resonance imaging. The
proposed work in (1) will likely be done in collaboration with Richard Melrose.
They intend to use their prior work on the Heisenberg calculus to find
invariants of contact manifolds. A problem of particular interest is to use
spectral flow invariants of Toeplitz operators to distinguish contact
structures with homotopic hyperplane fields. The work in (2) is part of
Dr. Epstein's ongoing project on embeddability of CR-manifolds, he proposes to
consider CR-structures in dimensions greater than 3 to understand why some
CR-functions are unstable and why some are stable under deformation of the
underlying CR-structure. The project described in (3) concerns the problem of
analytically parameterizing the eigenvalues and eigenspaces of a "self adjoint"
analytic family of matrices. In broad terms Dr. Epstein would like to see what
the modern theory of functions of several complex variables has to say about
multi-parameter perturbation problems. Preliminary investigations show that
real progress is now possible in this field. His main goal is to find
reasonably simple and explicit analytic spaces on which the eigenvalues and
eigenspaces of a self adjoint family are analytically parametrized. Finally
(4) is an entirely new direction for Dr. Epstein's research. He plans to study
the feasibility of magnetic resonance imaging using inhomogeneous background
fields.

Dr. Epstein's work is in the application of analysis and algebra to problems in
geometry. A principal focus of his research is the geometry and analysis of
contact manifolds. These arise is many contexts from several complex variables
to differential geometry to topology to partial differential equations. Using
the tools developed in collaboration with Richard Melrose, Dr. Epstein hopes to
elucidate the analysis and geometry of these ubiquitous spaces. Dr. Epstein
also plans to investigate the feasibility of magnetic resonance imaging using
inhomogeneous background fields. This is largely beyond the capabilities of
present day technology. If it proves feasible it would allow many new
applications of MR imaging and should also lead to less expensive equipment.
This is a multifaceted problem with significant mathematical and
engineering aspects.